CI-New: BugSwarm: A Large-Scale Repository of Replicable Defects, Tests, and Patches to Support the Software Engineering Research Community

Improving software quality is a central priority of our time.
Approaches to understand, diagnose, localize, and fix software defects
are usually empirically grounded in datasets of past defects/repairs.
A few such datasets are available; however, these datasets are
difficult to create, and are typically not of the size, scale, and
diversity that is representative of the software in use. The goal of
this project is to create BugSwarm, a large-scale repository of
replicable defects, tests, and patches. We propose to draw from the
recorded history of defects in open-source projects, to create this
dataset of unprecedented size and diversity, while retaining
sufficient fidelity of detail to allow careful study and replication
of these historical defects. BugSwarm will amplify the size of
available defect datasets by several orders of magnitude.

Continuous integration (CI) development practices, where build and
test processes are carried out in the cloud, with archived results,
offer a novel opportunity to construct defect datasets. We propose to
exploit CI coding practices to create BugSwarm. Continuous, online
integration practices inherently create archived records of build and
test attempts, including those that result in build and/or test
failures, and subsequent repairs. These practices emerged from the
imperatives to: a) rigorously and automatically build, integrate, and
fully test numerous code submissions from volunteer developers; and b)
the need to test these submissions at large volumes, in virtualized,
configurable, cloud-based settings. The virtualized, cloud-based
testing makes these defects much more available and replicable. We
will exploit these archived records to create DRPs (Defect Replication
Packages) and DFRPs (Defect & Fix Replication Packages), comprising
buggy versions of the code, failing regression tests, and bug fixes.
DRPs and DFRPs will include complete virtual machines to reproduce
real test failures. BugSwarm will facilitate experimentation, and
avoid the duplication of a tremendous amount of work among researchers
in programming languages, and software engineering.